Summer Science and Instructional Methods Courses for Elementary and Middle School Teachers

This project will provide 120 elementary and 100 middle school teachers with four weeks of concentrated science course work and science methods instruction during the summer of 1987. The emphasis at the elementary school level will be to build teacher confidence and content knowledge in the following science areas: Botany, Earth Science, and Physics-- heat and pressure physics, and sound waves and simple harmonics. The emphasis at the middle school level will be to introduce a variety of student-oriented teaching strategies to be used with typical middle level curricula covering the content areas of Earth and Space Science, Chemical Concepts, Physical Concepts, and Life Science. All teachers will also be involved in four follow-up sessions during the 1987-88 Academic Year. During the four-week experience, teachers will attend content presentations in the morning followed by a directly-related methods presentation in the afternoon. In addition to mastering the content, each teacher will be expected to develop a lesson plan each day to be used upon his/her return to the classroom.